Customized Spatial Sound for Human/Computer Interaction

Current systems that generate spatial sound for computer-based
applications employ Head-Related Transfer functions (HRTFs) and
simple models of room reflections to provide the acoustic localization
cues. However, the abilities of these systems to generate well-controlled
spatial sound streams are quite limited. Although it is possible to position
virtual sound sources to the left or right rather accurately, front/back
confusion is common, localization in elevation is problematic, and localization
in range is unreliable.

This proposal describes a comprehensive program of research directed at solving
the major problems that are the cause of these limitations. These problems
are identified as (a) a mismatch between the HRTF used by the system and
the listener's actual HRTF, (b) a failure to provide the correct dynamic cues
that occur when the listener moves relative to the source, (c) a mismatch between
synthesized room reflections and the listener's experience or expectations, and
(d) a failure to render the correct spectral cues for familiar sounds,
such as human speech.